Industry/University Cooperative Research Center for Nondestructive Evaluation

EEC-9527377 Thompson This award provides funds for the Industry/University Cooperative Research Center for Nondestructive Evaluation at Iowa State University to continue research in the area of nondestructive evaluation. The research emphasizes advanced ultrasonic techniques, eddy current, thermal, and optical techniques, radiographic techniques, signal processing, pattern recognition, and nondestructive evaluation of composite materials. The research includes development of novel techniques, computer-based modeling, analysis of states of stress, advanced signal processing, and investigation of the structure and properties of materials.